Acquisition of an AM 400 Spectrometer

Nuclear magnetic resonance spectroscopy (NMR) has become the primary analytical tool in organic and bioorganic chemistry, and of major importance in inorganic and biophysical chemistry as well. Acquisition of such sophisticated instrumentation greatly increases the ability of a department to carry out front line research. Recent advances in two-dimensional (2-D) NMR (COSEY and NOESY techniques, etc.) have dramatically enhanced its application in these fields, in spite of the fact that such experiments are very time-consuming. This award, when coupled with an instrumentation award from NIH, will enable the acquisition of a 400 MHz NMR spectrometer capable of carrying out 2-D spectroscopy and other techniques requiring state-of-the-art equipment and large blocks of time. The instrument will also complement the present capabilities of the department and maximize the overall utility of the present facility. Programs involved in studies of organometallic chemistry, organic synthesis, biorganic synthesis and bioorganic mechanisms will be enhanced by acquisition of the instrument.